Connection of School to OARnet and NSFNET - Washington State Community College

9502986 Bender The Ohio State University Research Foundation requests support from NSF for connection of the campus networks for Washington State Community College to OARnet and the Internet. OARnet is the midlevel network located in the state of Ohio that will provide operations and network information services. It will provide Washington State Community College a 56KB connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States The College needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the Washington State Community College.